The University/Industry Program for Teachers of Physics

The project; University/Industry Program for Teachers of Physics, is designed to modernize and deepen the science background of 30 high school physics teachers while providing them with teaching materials representative of topics of current scientific and technical interest. The physics teaching modules which form the basis of the project were developed by teams of physics teachers working with Rutgers University faculty and industrial scientists from AT&T Bell Laboratories and Bell Communications Research. The Leadership Institute for Teachers of Physics is the central activity of the project. The thirty physics teachers, selected nationwide, will attend a four-week residential program during July 1989. The summer program includes laboratory work on the modules with the assistance of Lead Teachers and university faculty, a seminar series developed by university and industrial scientists, discussion of effective teaching strategies, and tours of leading research facilities. In addition, selected Lead Teachers will continue to work with scientists on module development throughout the year. This will involve the revision and testing of previously developed modules and the creation of new ones. To facilitate the use of the modules both in the classroom and at professional science education workshops, follow-up meetings will be held during the school year for regional teachers. All 1989 Institute participants will be invited back for a one-week follow-up program in the summer of 1990. Participants will also be encouraged to communicate using PIMAIL, an interactive computer network sponsored by the American Institute of Physics.